Presidential Young Investigator Award: Mechanisms and Strategies for Technological Advancement in Construction

This study is seeking means to increase the rate of technological advancement in the construction industry. Research plans involve analysis and modeling mechanisms for research and innovation in advancement. Research interests also include two related topics: means to strengthen the engineering/construction interface, and designing constructed facilities to support the automation of construction operations. The project is also investigating constructibility improvement during conceptual planning and the use of techniques such as modularization and pre-assembly.